MGR Honorable Mention: Nancy Marie Mitchell

This special award will give Ph.D. student Nancy M. Mitchell additional flexibility in pursuing her graduate studies and research initiation in cultural anthropology. This award will strengthen minority participation in research in this area.